RUI: The Modulatory Role of pH in Hippocampal Neuron Metabolic Responses to Challenge

9319433 Susman Acid-base balance, or pH homeostasis, is crucial for the proper function of many organs within the body, including the brain. However, despite the general agreement that pH homeostasis is crucial for brain function, little is known about the impact of changes in pH on nerve cell (neuron) functioning. It was only recently that scientists recognized that changes in brain pH play a role in neuron signalling. Neurotransmitters, released from neurons in response to an electrical signal, influence brain pH. Further, brain pH influences the response of neurons to neurotransmitters. These findings indicate that changes in pH modulate neuron electrical functioning. It is well-known in other systems that pH changes affect many cellular processes, including energy and protein metabolism. Despite indications that pH affects neuronal function, little is known about the role of pH changes in metabolism of neurons or of how pH is regulated in neurons. Current research explores the relationships among pH, energy metabolism and protein metabolism in slices from the region of the brain implicated in learning and memory, the hippocampus. We assess the impact of brief changes in pH on neuronal metabolic responses to neurotransmitter stimulation and to energy challenges. Results from this study will provide important information about the role of changes in brain pH in several important aspects of neuronal function, particularly protein and energy metabolism, and will provide new information about pH regulation in the mammalian brain. ***